Inorganic Chemistry for Undergraduates: Necessary Instruments

This small liberal arts college for women with a strong tradition of training women in the sciences is reintroducing a course in Inorganic Chemistry and requiring it for the Chemistry major. The course, as it is being offered, is open to students of sophomore standing or higher. The instruments necessary for an undergraduate course in Inorganic Chemistry, a fast-scan UV/Vis Spectrophotometer, an Atomic Absorption Spectrometer, and a Magnetic Susceptibility Balance, were chosen due to the ease of obtaining and interpreting data, and the ability of these instruments to examine both gross physical properties and molecular and atomic properties. The experiments being performed with these instruments reinforce or substantiate the concepts introduced in the classroom, rather than simply giving the student "experience" doing a particular manipulation or using the particular instrument. For most experiments the students are working independently in obtaining certain data, but then, as a class, share and evaluate the data in discovering and developing patterns. By allowing sophomores to take this course they are hoping to give more students the opportunity to pursue advanced studies in inorganic chemistry. The grantee is matching the award from non-Federal sources.